Zooarchaeology & Human Ecodynamics in Northern Iceland and Faroe Islands

This research project supports multi-disciplinary research in Iceland and the Faroe Islands focusing on the ecological impacts of first human settlement and the theoretical insights this gives into global climate processes and social, political and economic change. Focusing on zooarchaeology, complemented by historical, ethnographic, and ecological research, the project proposes to provide a deeper understanding of the relationship between the social and ecological factors shaping the current island landscape. Building on prior research, the PI and CoPI continue to test their understanding the complex relationships between humans and their environment.